U.S.-Czech Workshop on Computer Vision (Prague, September 3-4, 1995)

9507160 Bajcsy This U.S.-Czech workshop on "Computer Vision" to be held in Prague during September 3-4, 1995, will bring together experts from Slovakia as well as the United States and the Czech Republic to discuss topics pertaining to computer analysis of images and patterns. Dr. Ruzena Bajcsy of the University of Pennsylvania will serve as the principal organizer for U.S. participation. Dr. Vaclav Hlavac of the Czech Technical University will serve as her counterpart and the organizer for the Czech side. The objective of the workshop is to identify computer vision research topics for subsequent, long-term collaborative research projects that feature complementary resources and expertise in computer science and relevant mathematical foundations. ***